Large Scale Interface Dynamics in Energy-Driven Condensed Matter Systems

Glasner
DMS-0807423

The investigator considers fluid and solid interfaces that
have multiscale behavior, spatiotemporal interaction and large
scale organization. One component of this project focuses on the
evolution of gravitational and surface tension induced free
surface instabilities in viscous fluids, which give rise to
coherent structures like fluid droplets, ridges and jets.
Perturbative techniques and computational studies lead toward a
description of large-scale condensation and geophysical
processes. A second component of the project involves dynamical
models of material microstructures. Patterning in systems with
nonlocal interactions, such as block copolymer mixtures, is
studied from the point of view of dynamical development,
utilizing formal and numerical approximations, and homogenization
techniques that yield statistical descriptions. The motion of
grain boundaries in crystalline surface evolution and pattern
formation equations also is investigated, seeking to characterize
the singular structures that emerge both from energetic and
geometric perspectives.

The investigator studies how fluid and solid interfaces move
and interact in complicated, large systems. Models and
simulations are developed that are used to explain laboratory
observations and that have capabilities to predict and control
dynamics for design and manufacturing. Fluid flows that are
studied have applications ranging from industrial coatings to
geophysical morphology, such as cave formations. The solid
systems of interest include block copolymers, "designer"
materials that hold considerable promise for nano-engineering.
The project also includes educational aims that expose
undergraduates to modeling and computation and train graduate
students for scientific careers.